OMSI Young Scholars Research Participation Program

The Oregon Museum of Science and industry will conduct a summer program where 20 students will participate as members of one of two research teams, working alongside professional researchers: (1) The Paleontological Research Team, directed by paleobotanist, Dr. Steven Manchester will collect Eocene fossils from lake deposits near Hancock and compare them to lake deposits found at other sites in the Northwest. (2) The High Desert Stream Ecology Research Team will systematically sample water temperatures, species composition and diversity of fish, invertebrates and streamside vegetation in tributaries of the John Day River under the direction of Dr. Hiram W. Li, fishery biologist, and Judy Li and Dr. Gary Lamberti, aquatic entomologists. Both research teams will Hancock Field Station as a base of operations from July 10 until August 25, 1989. Laboratories at Oregon State University and facilities of the Burke Museum of Natural History at the University of Washington will also be used. Activities will expose students to the methods, philosophy, and ethical issues relevant to paleontology, aquatic biology and related fields. Participants from both teams will present a seminar for one another on their research. Each participant will conduct an independent project.